A Theoretical Intermediate Energy (Nuclear/Particle) PhysicsGroup

The Research Improvement in Minority Institutions (RIMI) program was established to provide support to strengthen the research environments and capabilities of predominantly minority institutions that have substantial minority student populations. Eligible institution must also have graduate programs in science or programs in engineering. Funding is provided for faculty research in fields of science and engineering supported by the Foundation and for the acquisition of research instrumentation. Hampton University will use RIMI support to establish a physics research group to study theoretical intermediate energy (Nuclear/Particle) on few-body and many-body systems. The project will focus on the quark content in the nuclear force, nuclear physics with antiprotons, and relativistic effects in these systems. Techniques such as field theory, coupled channels, hybrid models, and quark exchange diagrams will be employed to explore the long, medium, and short-range pieces of the Nucleon-Nucleon and Nucleon-Antinucleon interactions. Phase shifts and cross sections will be obtained and predictions with respect to the empirically obtained Nucleon-Nucleon phase shifts and many-body cross sections will be made. The principal investigator is a well trained theoretical physicist who has performed research at several Federal laboratories. The Foundation has supported this project because minorities will have opportunities to participate in meritorious theoretical physics research at Hampton University and at the Continuous Electron Beam Accelerator Facility (CEBAF).